RIA: Cooperation Support Systems for Group Problem Solving

IRI-9409924 Chang, Ai-Mei University of Arizona $29,691 - 12 mos. RIA: Cooperation Support Systems for Group Problem Solving This is the third year funding of a three-year continuing award. Many problems that are encountered in an organizational setting are large and complex enough that they require a team/group effort for efficient and effective resolution. These problems are usually decomposed into subproblems which allows team members, each of whom is responsible for a distinct subproblem depending on their area of expertise, to work on subproblems and resolve the overall problem through coordination with each other. In some cases, the problems are well-structured so that a decomposition of the overall problem will result in relatively independent subproblems, which may facilitate concurrent resolution of subproblems. This is followed by information exchange and cooperation between team members to resolve the overall problem. In some cases, problems may be ill-structured, ill-defined, and/or subproblems may be highly interdependent so that team members may have to collectively deliberate on the various aspects of the problem to resolve it. Most other problems are usually in between these extreme cases. Examples of such problems range from engineering and software design, project planning to project selection, product design and marketing, make or buy decisions, audit going concern decisions, and many other organizational decisions that involve an interface of different organizational functions. This project addresses the issue of designing information sharing and cooperation mechanisms to support the overall problem resolution process using AI techniques and Argumentation Theory.